Focused Session at the 1994 ASME/DTM Conference: The Development and Use of Multimedia Design Education and Research; Minneapolis, MN; September 1994

9415352 Mistree This project supports professors from aerospace, civil, engineering sciences, and mechanics to present workshop at the 1994 ASME Design Theory and Methodology Conference, in The Development and Use of Multimedia in Design Education and Research. There will be a CD-ROM made of this program and it will be available to the design theory and methodology community. This will help to foster cross-fertilization amongst disciplines. This is based on the belief that there is benefit in bringing together people from different disciplines to share their visions and expertise with mechanical engineers.